Vinyl Isocyanates in Alkaloid Synthesis

The participation of vinyl isocyanates as 4-electron partners in various cyclocondensation reactions will be studied in order to extend the reactivity profile of these interesting reagents. The program will focus on novel reaction partners such as nucleophilic carbenes, isocyanides and other species in an attempt to make a wide range of heterocyclic ring systems easily accessible. Also, an important objective will be the development of intramolecular versions of these newly discovered reactions. A second area will be to examine the unique characteristics of vinyl isocyanides. It is envisioned that these species represent an effective equivalent to an "umpoled" version of the vinyl isocyanate series. The usefulness of these compounds in a range of synthetic problems will be investigated. %%% With this award the Synthetic Organic Program of the Chemistry Division will support the research of Dr. James H. Rigby of the Department of Chemistry at Wayne State University. The program will develop synthetic methodology for the preparation of nitrogen-containing heterocyclic compounds using vinyl isocyanates and vinyl isocyanides as reagents. The structural features of the heterocycles are found in a wide variety of important natural products and thus are significant synthetic targets.